NSF Young Investigator: Small Depth Boolean Circuits and Complexity - Theoretic Cryptography

This award funds continuing investigations into two long-term interests: the complexity of small depth Boolean circuits, and the computational complexity foundations of cryptography. Computational complexity as a field strives to provide a mathematical foundation for computer science by developing techniques to evaluate the inherent difficulty of computational problems. The Boolean circuit seems the most natural and robust concrete model of computational complexity. Much work has gone into developing the theory of circuit complexity in the hope of resolving such questions as P vs. NP. There are strong connections between bounds on circuit depth and issues in the theory of parallel computation, logic (mostly proof theory), learning theory, and the theory of neural nets. Continuing projects in circuit complexity are: establishing links between circuit bounds and Frege proofs; examining the behavior of formulas under random restrictions, (also known as neural nets). Of course, circuit complexity is a dynamic area, and specific projects may change with new results. Work continues on the foundations of cryptography. Recent work in developing the structural complexity of cryptography has been so successful that perhaps all the major, tractable questions in the area have been resolved. Indeed, there seem to be some theoretical roadblocks to further progress in this direction. However, there are several important open questions regarding the relationship between average-case complexity and cryptography, and that between oblivious transfer and secret agreement. More importantly, a large gap remains between theory and practice. Another goal of the project is to develop theoretical tools that will actually lead to implementable cryptosystems, and to handle such questions as virus protection, secure electronic transfer of funds, and such issues as privacy vs. security for electronic mail.